The Sedimentary Record of Coastal Evaporite Basins, Baja California, Mexico

New light has been shed on sabkah (evaporite) processes by chemical and hydrologic analyses. The principal Investigator completed geochemical studies and measurement of direction and rates of movement of saline groundwaters and surface waters for several sabkahs in the region. She plans to extend and test observations in two coastal evaporitic basins known to have gypsum- anhydrite-halite deposits. The goal of this project is the development of criteria for recognizing sabkah deposits in the geologic record, setting the groundwork for future research in developing accurate focus models of sabkahs and related depositional environments.